Dissertation Research: Herbivory and the Evolution of Habitat Specialization in Amazonian White Sand and Clay Forests

Tropical forests include a diversity of habitats, which has lead to specialization in
plants. Near Iquitos, in the Peruvian Amazon, nutrient-poor white sand forests are found
immediately adjacent to nutrient-rich clay forests, each harboring a unique composition
of habitat specialist trees. Why does habitat specialization occur? Our hypothesis is that
the combination of impoverished soils and herbivory creates strong selective pressure for
plant defenses in white sand forest. Species that have not evolved high levels of
antiherbivore defense are therefore at a disadvantage in white sand forests and excluded
by herbivores.
To test whether herbivores select for higher optimal antiherbivore defense in
white sand plants, we are comparing defense investment in 33 species from 6 genera that
include several phylogenetically independent pairs of closely-related white sand and clay
specialists. In addition, we have established a reciprocal transplant experiment to
manipulate the presence of herbivores and directly test to what degree herbivores
maintain the low overlap in species composition between the two forest types. If
herbivory has a significant effect on habitat specialization, it will suggest a new way that
herbivores may influence plant evolution: by sharpening habitat boundaries due to abiotic
factors and thereby increasing the potential for habitat specialization.